SBIR Phase I: Novel Nanohybrids for Room-Temperature Hydrogen Detection

This Small Business Innovation Research (SBIR) Phase I project seeks to significantly advance
H2 gas sensing technologies by exploring a novel nanohybrid sensing platform of SnO2
nanocrystals supported on carbon nanotubes (CNTs). The high demand of H2 as a clean energy
source drives the fast growth of the H2 sensor market. Early detection of H2 is essential to the
safe handling of H2, and ultimately supports the market feasibility of a hydrogen economy.
Currently, no single H2 sensor technology exists that can meet the leak detection and safety
features required for the widespread use of H2. Miniaturized resistive sensors based on the
proposed SnO2-CNT platform are promising for H2 detection with low cost, low energy
consumption, superior sensitivity at room temperature, and flexibility to realize selectivity.
The broader/commercial impacts of this research are that miniaturized H2 sensors to be
developed will directly benefit society by enabling secure deployment of hydrogen fuel.
Combining the unique properties of novel nanomaterials with rapid progress in microelectronic
device fabrication promises low-cost, novel electronic device structures that can be readily
fabricated using existing microfabrication infrastructures. The major sensing materials used in
this platform, CNTs and SnO2, are affordable, particularly given the small amount of materials
needed for each sensor. With a pre-fabricated sensor substrate, the sensor fabrication time is on
the order of minutes. The project will also train UWM graduate and undergraduate students in
the areas of nanomaterials, nanodevices, and green energy.